Cell Separation in Oscillating Electromagnetic Fields

The separation of cells is accomplished by subjecting the aqueous suspension containing cells to cross electric and magnetic fields. These fields cause the cells to drift and the drift velocity is a complex function of cell structure, cell size and the operating conditions such as the strengths of and the phase shift between the two fields. The feasibility of the technique has been successfully demonstrated in Phase I experiments, in which a latex and three mammalian cells were separated. In this Phase-II project, flow systems will be constructed and tested, better resolutions for cell sorting will be obtained, and a theory will be established for predicting dependence of the cell drift velocity on the operating conditions as well as the structure and size of the cell. Successful results from the project would lead to a new technique for cell sorting which is needed in medicine, biochemical and biomedical engineering operations. This technique would be superior than electrophoresis in that it requires much lower electric fields.